Analysis of Resource Competition Models

Li
0211614
The goal of this project is to develop mathematical theory
regarding biodiversity in the context of resource competition.
Recent numerical work suggests that competition for multiple
resources can generate periodic oscillations or even chaotic
oscillations, and a large number of species can coexist on very
few limiting resources. However, both mathematicians and
ecologists still lack analytic understanding of mechanisms that
generate diversity in ecological communities. The investigator
studies several resource competition models, including standard
competition models with multiple resources and competition models
within food webs; he gives rigorous analysis for the models and
provides insight into diversity of competing species. Theory of
differential equations and theory of dynamical systems are used
to determine the long-term behavior of solutions of the models in
the form of attracting steady states, limiting cycles or strange
attractors. Important issues are what causes competing species to
coexist, and locating parameter ranges in which coexistence
occurs.
The question of the maintenance of species diversity in
natural systems has intrigued mathematicians and ecologists for a
very long time. This work provides a general understanding of
factors affecting abundance and biodiversity. The results have
important implications for determining the patterns of species
composition in aquatic and terrestrial systems, and for managing
natural resources such as forests and lakes.